Stochastic Models of the Flood Hydrograph Realizations

This project aims to develop new stochastic models and a probabilistic description for the complete shapes of generally multi-packed continuous-time flood realizations. First, a point stochastic model of the generally multi-station precipitation process, as observed at the available gaging stations over a watershed, will be developed. Usingprecipitation as the driving process of floods, a three-dimensional point stochastic (3-DPS) model for flood starting times, times to peaks, and peak magnitudes will be obtained. Then a stochastic model for the continuous-time flood realizations will be developed as an extension of the 3-DPS model. Finally, a probabilistic description of the continuous-time, generallymulti- peaked flood hydrograph realizations will be obtained from the above models in terms of a joint probability density function.